Support of Travel for Establishing U.S.-Brazil CollaborativeResearch in Metallic and Ceramic Materials

Engineers and scientists, with expertise in advanced metallic and ceramic materials, from United States and Brazil will participate in workshops, seminars and visits to take place in both countries. The purpose of these activities is to establish the basis for collaborative research in these areas of high interest to both countries and in fulfillment of the goals of the ongoing United States- Brazil Science and Technology Initiative.